NSF-CGP Science Fellowship Program: Control of Solute Permeability Across Membranes Made of Di/Triblock Copolyelectrolytes.

9311941 Varanasi This award will support a fifteen month grant under the NSF-CGP (Center for Global Partnership) Science Fellowship Program for Professor Sasidhar Varanasi, Department of Chemical Engineering, University of Toledo, Ohio. Professor Varanasi will undertake a three month cooperative research project with Dr. Norihiko Minoura, Department of Organic Materials, National Institute of Materials and Chemical Research (NIMC) in Tsukuba, Japan. The research will focus on the control of solute permeability across membranes made of di/triblock copolyelectrolytes. This will be accomplished by fabricating membranes, the permeability of which to large Brownian solutes can be tuned in a predictable manner, via changing the pH and/or ionic strength of the solutions bathing the membrane. This ability, in turn, should allow one to make the membrane highly selective in separating two solutes the sizes of which differ only to a small extent. Two kinds of membranes will be perfected to achieve the goal. First, will be polyelectrolytes absorbed in the pores of non-selective microporous membranes. The second would be ABA type triblock copolypeptides cast into a film using a solvent. The performance characteristics of membranes made by microphase separation will be compared to those made via grafting copolymers into microporous membranes to determine which of the methods leads to reliable and robust membranes with "tunable" permeation properties. Results of the research have potential for practical applications in a variety of important fields such as self-regulated release of pharmaceutics and the synthesis of several biochemicals. The National Institute of Materials and Chemical Research is a first- rate facility that has made considerable progress in polymeric materials research. Dr. Minoura is a well-known expert in membrane science in general and in synthetic polyelectrolyte membranes in particular. This specialization coupled with Professor Va ranasi's expertise in the area should provide an excellent collaboration that most likely would continue on an informal basis in the future.